Memory Management Issues in Large Scale Shared Memory MIMD Multiprocessors.

The study of operating system mechanisms and policies for the management of various levels of shared storage in tightly-coupled MIMD machines is at an early stage. This is even more true for the case of large-scale machines with hundreds of processors. This project will continue a multiyear investigation of these issues in the large-scale case with a focus on the Butterfly multiprocessor. Specific projects divide into the following classes: workload characterization, shared data migration across parallel main memories, management of virtual memory in a setting of multiple secondary memories each associated with a main memory, and file system design.